EvaluATE

The EvaluATE Center is an ATE Support Center dedicated to supporting and improving the evaluation practices of approximately 250 ATE grantees across the country. EvaluATE conducts webinars and workshops, blogs on evaluation practice, maintains a website with a digital resource library, develops materials to guide evaluation work, and conducts an annual survey of ATE grantees. EvaluATE's mission is to promote the goals of the ATE program by partnering with projects and centers to strengthen the program's evaluation knowledge base, expand the use of exemplary evaluation practices, and support the continuous improvement of technician education throughout the nation. EvaluATE's goals associated with this proposal are to: (1) Ensure that all ATE Principal Investigators and evaluators know the essential elements of a credible and useful evaluation; (2) Maintain a comprehensive collection of online resources for ATE evaluation; (3) Strengthen and expand the network of ATE evaluation stakeholders; and (4) Gather, synthesize, and disseminate data about the ATE program activities to advance knowledge about ATE/technician education. The Center plans to produce a comprehensive set of evaluation resources to complement other services, engaging several community college-based Principal Investigators, representatives from selected community colleges, and evaluators in that process.

EvaluATE's products are informed by current research on evaluation, the National Science Foundation's priorities for the evaluation of ATE grants, and the needs of ATE PIs and evaluators for sound guidance that is immediately relevant and usable in their contexts. The fundamental nature of EvaluATE's work is geared toward supporting ATE grantees to use evaluation regularly to improve their work and demonstrate their impacts. All of EvaluATE's products are available to the public. EvaluATE's findings from the annual survey of ATE grantees aid in advancing understanding of the status of technician education and illuminate areas for additional research. Implementing a mixed methods research design the Center will investigate approaches and methods to assess the impact of activities associated with developing evaluation capacity building